Investigative Chemistry using Gas Chromatography

This project is purchasing a capillary gas chromatograph (GC) for investigative chemistry laboratories at the college. This equipment aids the project director in redirecting the organic and biochemistry laboratories toward real-life research experiences. Students require capillary GC systems in such independent research as the isolation of sulforaphane from broccoli cultures. New projects include a multidisciplinary project on characterization of microbial communities in soil by GC analysis of fatty acid profiles. Ready availability of capillary GC instrumentation for student projects is essential to expand the project-oriented laboratory approach the science curriculum and to incorporate practical GC theory into the research-oriented projects.